Electron-Electron Interactions at TeV Energies Workshop

The proposal requests funding for partial travel support for the Electron-Electron Interactions at TeV Energies Workshop at Santa Cruz in December 7-9, 2001. The funds will be used to support graduate students and postdoctoral fellows who might otherwise not be able to afford to attend the meeting.